Physical Mechanisms of Cliamte Variability

This project focuses on two climate issues: 1) interactions between the East-Asia monsoon and the west Pacific Ocean and 2) Variability in total ozone. Diagnostic analysis will be carried out to understand (a) the role of seasonal and interannual variations of the East-Asia monsoon in developing, maintaining and strengthening of westerly anomalies in the western and central Pacific, and (b) changes of the trade winds in the western Pacific induced by variations of Tibetan heating and cooling. Recent data on vertical distribution of ozone will be used to estimate changes in radiative heating rates and changes in solar energy received at ground level due to variations in ozone. This work will enhance our understanding of interannual Variability of the climate system.